Comparison of GPS and Historical Triangulation Data for Mapping Crustal Strain Across the Great Sumatran Fault System

This proposal is to support a graduate student for two years to thoroughly research the Indonesian geodetic archives of the Dutch period in West Java and the archives of the Netherlands Geodetic Commission in Delft, and to perform a strain analysis across the Great Sumatran Fault System using historical triangulation data located in these archives and ongoing GPS measurements. This work will be coordinated with two Indonesian colleagues who will also be using the triangulation and GPS data as part of their doctoral studies. These data will provide important constraints on the decoupling of oblique convergence west of Sumatra into subduction normal to the margin between the Indian-Australian and Eurasian plates and right-lateral faulting parallel to it. Specifically, this comparison will enable us to measure horizontal strain rates both along the Sumatran fault to outline sections of differing fault behavior and far from the "fault, in the southwest to constrain the partitioning os shear" "throughout the forearc, and in the northeast to study the accumulation of elastic strain across the Sumatran Fault system. In addition, these data will provide valuable information on earthquake-and fault-related processes in this very seismically active region. These data are particularly valuable since the Dutch often resurveyed parts of the triangulation network after earthquakes.